Research Initiation Award: Cooper For Microelectronics Applications By Low-Temperature MOCVD (LTMOCVD) Processes

A research program for the growth, characterization and testing of copper films for applications in the new generations of electronic devices is proposed. The approach focuses on a CVD process which employs vapor precursors which dissociate at temperatures as low as 150'C. The process is "Low Temperature Metal-Organic CVD," or LTMOCVD.